Molecular Spectroscopy and Atomic Collision Studies Using High-Resolution Lasers

This research project continues on a joint experimental and theoretical research program that will address addresses important questions in the areas of high-resolution molecular spectroscopy, atomic collision physics, and molecular photodissociation. Spectroscopic studies of heteronuclear alkalki molecules, NaK, LiCs, NaCs, and RbCs, will measure vibrational, rotational, fine, and hyperfine structures of triplet states close to the dissociation limit, from which fundamental molecular interactions can be inferred. The project will also develop a technique using molecular photodissociation to produce fast, excited atoms whose kinetic energy and internal state can be precisely controlled. Using these velocity selected atoms, energy-pooling, associative ionization, and other reactions that provide stringent tests of atomic collision theory will be measured. On the broader impact of the program, the studies of LiCs, NaCs, and RbCs are of wide interest because these molecules have been proposed for use in quantum computing schemes using ultracold dipolar molecules. The experimental results will test the quality of theoretical potentials and the understanding of small interactions in small molecules. A further and significant broader impact of the program involves student training both for graduate students and undergraduates.